SHF: Medium: Collaborative Research: Ultra-Responsive Architectures for Mobile Plattorm

Conventional microprocessors are designed primarily for sustained
performance; they can operate at near-peak performance essentially
indefinitely until their energy source is exhausted. In battery and
cooling constrained environments such as mobile devices, sustained power
(and, consequently, peak performance) must be limited to at most a few
watts so that the device can dissipate heat using only passive
convection. However, many interactive mobile applications (such as
handwriting/speech recognition or image-based search) instead call for
bursts of intense computation in response to user input, creating the
need for a new ultra-responsive operating regime: rather than limit peak
power assuming sustained operation, systems should instead exploit heat
storage to enable brief computation bursts that greatly exceed
sustainable thermal limits without overheating. This project
investigates an approach called "computational sprinting", the central
essence of which is to compute at unsustainable rates but only briefly
so that temperatures do not reach unsafe levels.

The goal of this project is to address the architectural, thermal,
electrical, and software barriers to ultra-responsiveness via
computational sprinting. In particular, the project explores: (1)
architectures and memory systems that sprint via parallelism (activating
tens of reserve functional units/cores) and voltage boosting
(overdriving cores for single-thread performance) while facilitating
fast burst onsets; (2) thermal designs that improve thermal response
behavior to enable longer and more intense sprints; (3) mobile-optimized
electrical designs that provide stable supply voltages
despite current surges of an order-of-magnitude or more; and
(4) software mechanisms that explicitly manage limited thermal budgets
and anticipate and stage data needed during the sprint. The project
includes the fabrication of an experimental testbed to approximate the
computational, thermal and electrical capabilities of a future many-core
mobile device and to provide practical experience with sprinting.
Project impacts include (1) developing and advancing techniques for
improving the responsiveness of mobile devices and (2) integrating the
discoveries into a new cross-departmental course on computer system
design.